National Conference and Clearinghouse on Computer Ethics, New Haven, CT, August 12-16, 1990

Major developments in science and technology often have important social, legal and ethical implications. This is clearly true of new developments in computer science and technology. Computer professionals, philosophers, social scientists and public policy makers have responded to these issues in a variety of promising ways. Some professional organizations and governments, both state and federal, have begun to address some of the problems. This project will build on these efforts by sponsoring a national conference on computer ethics in the summer 1991. This inter- professional, four day event will bring together persons from these different disciplines and organizations, who generally have little opportunity to interact. They will hear cross-disciplinary perspectives in keynote addresses and participate in heterogeneous working groups to discuss and explore six major themes: (1) privacy, (2) system security, (3) equity and access, (4) software ownership, (5) values in the computer curriculum, and (6) values in academic computing. The conference is the initial event in the agenda of the Research Center on Computing and Society at Southern Connecticut State University. Much of the administrative framework for the center is in place. The center will help to provide long-term, institutional assistance for a cross-disciplinary network of people, organizations and materials on this topic. The center will support faculty development, research activity, publication and distribution of materials, major international events, curriculum development, case studies, training sessions and tutorials. The books, journals, reports, articles, data bases, software, films, videos and other materials contributed to, or prepared for, the conference will yield the core of a research library that the center will maintain and expand to provide a resource for studies in computing and values. The conference itself will generate model curriculum materials, proceedings, reports, and a "Resource Directory on Computing and Values," all of which will be widely available in paper and electronic form. This proposal grows from a successful EVS planning grant that brought together individuals representing the range of professions and professional associations and journals involved in issues of computer ethics. It also generated press and policy interest. The conference is timely and appropriate; it is likely to be well attended; outcomes will be widely disseminated; evaluation and follow-up activities are planned. Institutional support is very good and the principal investigators and associates highly qualified. The proposal is recommended for support with high priority.